Federal Statistics Fellowship Program

Bailar, Barbara SBR-9409755 This award provides partial support for the Federal Statistics Fellowship Program, a program organized by the American Statistical Association that brings academic researchers into the Bureau of the Census, the Bureau of Labor Statistics, and the National Center for Education Statistics to work with statisticians and social scientists for up to one year. The primary objective of the program is to foster collaborative and interdisciplinary research efforts that will stimulate the development of methodology and social science research relevant to issues on which federal statistical agencies provide information. This program, which began in the late 1970's, has been a success for both the academic community and the federal agencies. The benefits to these communities include: (1) research generated by access to data and other resources that are not available outside the particular government agencies, (2) improvements in federal statistics, which are used by academic researchers and others, and (3) the discovery of methodological and other research problems relevant to public policies.